RUI: mRNAs Encoding Testis-Specific Basic Nuclear Proteins

Dr. Kleene proposes to study the mechanisms that control the replacement of histones by transition proteins and protamines during spermatogenesis in the mouse. One major goal is to determine the amino acid sequences of the primary translation products for all the transition proteins in the mouse from the sequences of cDNA clones. Another goal is to elucidate the mechanisms which repress the translation of the mRNAs for the transition proteins and protamines in round spermatids, and activate their translation in elongating spermatids. The critical question here--whether the translation of these mRNAs is repressed by mRNP proteins or by structural elements of the RNA itself--will be answered by comparing the translational efficiencies of mRNPs and deproteinized mRNAs from the polysomal and nonpolysomal fractions of the testis in cell free translation systems. To search for structural elements that may be involved in translational regulation, the complete nucleotide sequences of the mRNAs for two transition proteins and both protamines will be compared. UV crosslinking will be employed to identify mRNP proteins in polysomal and non-polysomal fractions of the testis. This proposal is intended to introduce promising undergraduates to research in molecular biology. The differentiation of the sperm nucleus is a simple developmental system involving the interaction of a small number of abundant, structural proteins with DNA. It is an excellent system in which to study the development of a specialized structure and translational regulation in mammals.